Nonlinear and Adaptive Control of Chemical Processes

Adaptive control for nonlinear chemical processes is important for the efficient operation of these processes. In this effort, one of the current adaptive control theories will be tested on a team-water heat exchanger, a trickle bed reactor, and a simulated absorber. The adaptive control theory used approximates the system nonlinearities by quasi-linearizing the steady state equations or steady state data describing the system. Slowly time varying process parameters are estimated by a novel variable forgetting factor algorithm and systems with unknown delay times and no minimum phase characteristics are stabilized by an extended horizon control algorithm.